Thurston-Nielsen Theory and Fluid Mixing

DMS-9870323

Thurston-Nielsen theory and Fluid Mixing

Philip Boyland

The Thurston-Nielsen theory provides a powerful collection of tools to
analyze and understand two-dimensional dynamical systems. The theory
has potential for significant advances in the study of two-dimensional
systems of physical interest. Among the most interesting and important
come from fluid mechanics. Dr. Boyland will use Thurston-Nielsen
theory in conjunction with other dynamical tools to obtain a deeper
understanding of two-dimensional fluid mixing. Various mathematical
extensions of the Thurston-Nielsen theory will be obtained. These
extensions would enhance the applicability of the theory as well as
being of intrinsic mathematical interest. In addition, numerical and
laboratory experiments are proposed with the goal of designing
effective mixers and understanding many vortices as a model for
two-dimensional turbulence.

The mixing of different species of materials is extremely common in
natural systems and industrial applications. The main scientific
question is to understand how the mixing takes place, while in
industrial applications the focus is usually on the development of
schemes for effective mixing. In many applications high viscosity,
sensitivity of materials, the need to avoid foaming, and other
constraints make turbulence mixing infeasible and undesirable. Thus in
most instances the design of useful mixing procedures requires close
attention to efficiency. The added mathematical understanding made
possible by this project should help in this design process, providing
novel ideas for efficient mixing procedures and helping to eliminate
inefficient ones prior to expensive experimentation. In addition, this
project will make a powerful body of pure mathematics more accessible
for application to problems of physical and industrial importance.